ITR: Quantum Entanglement, Information and Computation

EIA-0113137
Yanhua Shih
University of Maryland Baltimore County

Title: ITR: Quantum Entanglement, Information and Computation

This project consists of a series of experimental and theoretical investigations on multi-photon entangled states and their fundamental role in quantum information and quantum computing. Major efforts underway include experimental and theoretical investigations on N-photon (N>2 entangled states) and on "partial entanglement" in quantum information and quantum computation theory.

Theoretical characterization of entanglement in mixed states is at the core of this project. The experimental investigations focus on two projects. The first one is the realization of source of three-photon entangled states. These may lead to experimental generation of GHz states. The second experimental project is quantum teleportation based on the improvement on the realization of Bell-state detection.